Connection of Kellogg Community College to MichNet and NSFNET

9625880 Mills Kellogg Community College requests support from NSF for connection to the MichNet. MichNet, a midlevel network in the in the Michigan area, will provide operations management and information services and it will give the campus access to the Internet, a collection of interoperable networks connecting most research and education organizations in the United States. The campus needs the Internet connections to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the Kellogg Community College as well as the community in general.